Lagrangian Torus Fibration of Calabi-Yau Manifolds and Application to Mirror Symmetry

Abstract for DMS - 0104150
PI: Wei-Dong Ruan

Dr. Ruan proposes to study the Lagrangian fibration structure of
Calabi-Yau manifolds and of more general Kaehler manifolds,
and their applications in mirror symmetry
and other Kahler geometry problems as well. The objective of the proposed research
is to further inderstand the Lagrangian torus fibration structures for more
general Calabi-Yau manifolds, exploring the interplay of sympletic
geometry and complex geometry in Kaehler manifolds, as indicated
by Kontsevich's categorical mirror symmetry program.

Mirror symmetry has its origin in string theory and
says that we have two theories, which appear to be completely distinct,
describing the same physics. If we have two different models of the same universe,
one can expect that one of the models can fill in the gaps in understanding
the other model. This project is towards understanding this symmetry principle.
Results from this proposal should be of interest to mathematicians from
various disciplines as well as physicists in string theory.